Mathematical Analysis of Materials Interfacial Motions by Surface Diffusion

Yip
0707926

The investigator concentrates on the mathematical
investigation of surface diffusion, which is a fourth order
geometric evolution. This motion law is a very useful model in
materials science for phase boundary motions, which appear in
thermal grooving, grain boundary migration, sintering, and many
other instances. Even though the model was proposed by Mullins
in the 1950s, analysis and understanding of the model is still
far from complete, due to the lack of sufficient mathematical
tools. Many issues such as existence of solutions, their
qualitative behaviors, and singularity formations are still wide
open. The project analyzes surface diffusion from a variational
approach, which has proved to be quite versatile for many similar
motion laws. Questions to be investigated include approximation
and construction of solutions, the analysis of crystalline facet
motions, and the understanding of solutions exhibiting
self-similarity structures. The outcomes can benefit both the
mathematical and materials science communities.

The use of mathematics in the modeling and analysis of
materials science phenomena has become more and more important,
in particular with the current continued outgrowth of
nanotechnology. The properties of real materials very often are
linked to the presence of inhomogeneity and defects such as phase
boundaries and triple junctions. Successful understanding of
these structures, especially their dynamical response behavior,
requires intricate mathematical tools. This project aims to
introduce new mathematical techniques to study phenomena of
surface diffusion that have been proposed and experimentally
observed for a long time, though many questions remain unsettled.
The scientific merit of the project includes a better
understanding of the materials and their response under various
external environments. The project also provides an excellent
opportunity for interdisciplinary research and educational
activities that can tie together mathematical and engineering
sciences, and graduate students are involved in the work.